CAREER: Optimal Design of Smart Materials

This CAREER award is made to advance both research and education in
engineering. The research is to study the microscopic features of physical
mechanisms and their relations with macroscopic cyclic mechanical behavior in
polycrystalline metallic materials near room temperature. The goal is to
bridge practical stress analysis with fundamental findings in material
science. The education plan consists of innovative teaching and developing
undergraduate and graduate courses. A systematic pilot research program will
be created to involve undergraduate students in research projects to provide
early exposure to practical problems. Self-directed and open-ended laboratory
experiments will be developed to encourage the students to be more creative.